Educating All of One Nation 2005

The Educating All of One Nation conference, sponsored by the American Council on Education, is the nation's largest conference charged with promoting the advancement of and inclusion of all Americans in higher education. The conference will convene in Phoenix, Arizona on October 6-8, 2005, and provide a forum where higher education stakeholders can discuss key issues that affect America's changing demographics by examining the role of diversity in various fields, including science and engineering. Conferees will learn about successful initiatives and identify mechanisms that can enhance and accelerate efforts to achieve increased diversity in the science, technology, engineering and mathematics (STEM) disciplines and the workforce. As a result of the conference participants will have a renewed commitment to help the nation advance its STEM-related human resources agenda by responding to the nation's economic and national security challenges. These efforts will further excellence in discovery and innovation in science and engineering by addressing the need to involved a greater number of individuals from underserved communities in these important disciplines.